Proof-of-Concept of Computer-based Calculus Course

Proof-of-concept tests of a complete computer-based course covering the standard material in the AB Advanced Placement Calculus Syllabus will be undertaken in two settings where the same computer-based technology can be used as solutions to different problems. (1) Middle schools with mathematically precocious students. (2) Colleges or Universities where students use the computer program for problem solving and tutorial help. The computer-based course makes extensive use of graphics, interactive on-line problem solving, and interactive expository techniques appropriate to the level and complexity of the calculus. On-line problem solving and exercises are supported by a symbolic computation environment called the Equational Derivation System in which students construct solutions to problems step by step using natural mathematical operations. The REDUCE computer algebra system is used as an internal algebra engine by this program. The effectiveness of these main components of the course will be evaluated. The program runs on UNIX-based color graphics workstations.